GRGC: Dating and Correlation of Paleoclimate Proxy Records

9405374 Jacobsen Project involves development of a high-precision 87Rb-86Sr dating technique applicable to both lavas and foraminifera. One objective is the evaluation of this method for leucite-bearing Italian volcanics by study of groundmass minerals and phenocrysts in historical lavas. A second is an evaluation of the disequilibrium dating method applied to both shallow and deep water samples containing forams from the Pacific, plus initial investigation using del 234U dating of forminiferal ooze in Toba Ash horizons. The ultimate goal is to provide precisely time-resolved climate proxy records to increase our ability to understand causes of cyclic variation in climate.